Biodiversity and Ecosystem Informatics - BDEI - Spatio-temporal Models of Biogeophysical Fields for Ecological Forecasting: A Cross-Disciplinary Incubation Activity

EIA-0131937
Henebry, Geoffrey
University of Nebraska - Lincoln

BDEI: Spatio-temporal models of Biogeophysical Fields for Ecological Forecasting:
A Cross-Disciplinary Incubation Activity

Summary

We are now in an era of intensive earth observation: orbital platforms generate myriad remote sensing
datastreams across a range of spatial, temporal, spectral, and radiometric resolutions. The number and
variety of "eyes in the skies" are scheduled to increase significantly over the next few years. This
veritable data deluge necessitates new ways of thinking about transforming remote sensing data into
information about ecological patterns and processes. These datastreams hold the promise for
environmental decision support. Yet, there is a critical need for theories and tools that will enable efficient
and reliable characterization of spatio-temporal patterns contained in image time series. We think that
such tools must be based on ecological expectations of land surface dynamics, analogous to
climatological expectations. Ecological expectations would summarize across specific regions the typical
temporal development of spatial pattern in biogeophysical fields. We have a robust principal method for
extracting ecological expectations from remote sensing datastreams: projecting image time series into
pattern metric spaces. To make ecological forecasting an operational possibility, we need the capability
to establish and to update complex spatio-temporal baselines that will enable prediction of the usual and
identification, quantification, and assessment of the unusual. A recent NASA workshop on Earth Science
data mining identified anomaly detection as a key characteristic of scientific data mining; yet, there are
relatively few examples of spatio-temporal data mining of biogeophysical data. Our approach is spatio-temporal datamining that is informed by relevant domain expertise. Representation of the spatio-temporal
entities and fields in databases must support sophisticated spatio-temporal queries: a capability that does
not currently exist.